Studies in Mathematics and Mechanics of Textured and Prestressed Solids

DMS-9803441
Chi-Sing Man

The objectives of this project are: (1) to develop a systematic
mathematical procedure by which the quantitative effects of
crystallographic texture on the material tensors (e.g., the
fourth-order elasticity tensor, the sixth-order acoustoelastic
tensor, etc.) of weakly-textured polycrystalline solids can
be fully delineated; (2) to develop an acoustoelastic theory
for using surface acoustic waves in nondestructive evaluation
of residual stress and/or other material parameters (e.g.,
elastic constants, texture coefficients, etc.) in thin-film
coated anisotropic solids. The systematic procedure to be
developed in the first investigation will be based on the
theory of group representations and the theory of invariants.
The Stroh formalism and, in particular, Barnett and Lothe's
surface impedance method will be used in the second study.

Explicit formulae which would result from the first
investigation will bear on all applications involving
weakly-textured solids (e.g., metal forming operations,
ultrasonic measurement of stress in structural metals) where
delineating effects of texture-induced anisotropy is essential.
Thin films of advanced coating materials, which are increasingly
sprayed, deposited, or grown on substrates to increase their
resistance to high temperatures, corrosion, or abrasive wear,
often carry residual stresses as a by-product of the production
process. The second investigation will provide a theoretical
basis for using laser ultrasonics and acoustic microscopy to
obtain information on surface stress for quality control
of thin-film coatings.